Measurement of Nucleon Spin Structure at RHIC

This grant supports the participation of the Penn State University in
the STAR experiment at Brookhaven, including a full time research
associate, Akio Ogawa, at Brookhaven Lab. The principal interest of the
Penn State group involves the study of proton spin structure with
experiments using polarized proton beams at RHIC. The approved upgrades
to the STAR detector for this physics include an EMC (Electro-Magnetic
Calorimeter). As this system comes online, STAR will be capable of
reconstructing the higher rate, higher transverse momentum interactions
that are needed for polarized structure function measurements. The
utilization of these new features for a meaningful measurement of proton
spin structure presents a very large software challenge. Penn State is
developing software that will be required to simulate, collect and
analyzed these data from STAR. Some polarized proton running at RHIC is
expected each year for the next several years and will likely be in
increasingly important component of the STAR program. The central
objective of these experiments will be the measurement of the
contribution of gluon fields to the proton spin.